Hybrid Task Assignment Strategies for Distributed Computer Systems

The objective of this project is to design and characterize a new class of algorithms for allocating a set of computer programs to multiple computers in a distributed computer system. Program allocation strategies reduce the delay for a single user or maximize the throughput of the distributed system as a whole. Part 1: Static Allocation. The research will extend the work on throughput optimization and delay minimization strategies for assigning programs to computers. These optimization criteria have been studied independently by Stone and by Shen and Tsai but their interactions are not well understood. The hybrid algorithms will integrate Stone's maximum flow/minimum cut strategy with Shen and Tsai's graph matching and A* strategies. Because of a specific combination of improvements, the algorithms should outperform those of Shen and Tsai. The work proposes to use a more realistic system description then the one assumed by Shen and Tsai. Part 2: Dynamic Allocation. The research attempts to integrate sender-initiated with receiver-initiated strategies. These strategies have been studied separately by many researchers but their interactions are not well understood. As with static allocation, hybrid algorithms should perform better than one based solely on any one strategy. The project will demonstrate this advantage by using specific performance parameters. Values for model parameters will be taken from actual measurements.